CAREER: An Integrated Framework for Semantic-Based Analysis of Logic Programs

CCR-0131862

Lunjin Lu

Semantic-based program analysis provides useful information to
compilers, debuggers and other program manipulation tools. Existing
frameworks for logic program analysis do not provide support for
backward or parametric analyses that are emerging as useful tools in
logic program development. Nor do they provide sufficient support for
context-sensitive analyses. The project seeks to create a new
framework that will support these new classes of analyses as well as
those supported by existing frameworks. The research focuses on (i)
developing systematic methods for designing parametric, backward and
context-sensitive analyses and methods for efficient computation of
these analyses; (ii) integrating research findings in logic program
analysis; (iii) implementing a software environment that facilitates
design, implementation and evaluation of program analyses; and (iv)
identifying, implementing and evaluating new program analyses. A
better understanding of parametric analysis, backward analysis and
context-sensitive analysis may be obtained out of the research and
that would provide a breakthrough in the field of logic program
analysis. This project plans to incorporate research results into the
classroom by developing and enhancing several courses in computer
science and software engineering. It also offers educational
opportunities for graduate and undergraduate students to work on
leading edge research projects.